Regulation of Assimilatory Nitrate Reductase

Solomonson 9317557 The nitrate assimilatory pathway is the major route by which inorganic nitrogen is converted to a biologically useful organic form. Regulation of the first step in this pathway, catalyzed by nitrate reductase (NR), is important to prevent toxic accumulation of intermediates (nitrite and ammonia), to assure efficient utilization of nitrate, and to permit rapid adaptation to changes in environmental conditions. Results of previous studies have indicated that NR is regulated at several different levels by multiple effectors and environmental factors reflecting the key role of this enzyme and the biological importance of pathway regulation. Our research will focus on elucidating molecular determinants and mechanisms which are important for the regulation of NR at the molecular (enzyme) level and establishing interrelationships between various modes of regulation. Specific aims will include: a) identification of functional groups involved in NR turnover, catalysis, binding or regulation, and the localization of these groups with respect to functional domain or primary sequence site on the enzyme; and b) determination of effects of possible activity modulators such as protein kinases/phosphatases, metal binding effectors (e.g., nitric oxide or cyanide), or other effectors on NR turnover and catalytic efficiency. The ultimate goal of our research is to obtain information from this and other studies to develop procedures for increasing the catalytic efficiency of NR and for regulating its action in an effort to increase agricultural productivity. %%% Nitrate is the major source of organic nitrogen in biological organisms. The process by which nitrate is converted to a biologically useful, organic form, termed nitrate assimilation, occurs in a wide variety of organisms including bacteria, yeast, fungi and higher plants, which in turn supply the nutritional nitrogen requirements for other forms of life, including human. One of the goals of this r esearch is to develop strategies for increasing the catalytic efficiency and for regulating the activity of the key enzyme, nitrate reductase (NR), in the nitrate assimilation pathway. The focus of our current research program is to identify the functional groups of the NR molecule and other factors that will help us learn more about the protein. We may then use this information to engineer agriculturally interesting plants with more efficient nitrogen metabolism and increased production capacity. Plants with improved nitrogen metabolism will result in decreased need to supply chemical fertilizers to our crops. ***